AF: Medium: Collaborative Research: Solutions to Planar Optimization Problems

The aim of this research is to develop new algorithms and algorithmic
techniques for solving fundamental optimization problems on planar
networks. Many optimization problems in networks are considered
computationally difficult; some are even difficult to solve
approximately. However, problems often become easier when the input
network is restricted to be planar, i.e. when it can be drawn on the
plane so that no edges cross each other. Such planar instances of
optimization problems arise in several application areas, including
logistics and route planning in road maps, image processing and
computer vision, and VLSI chip design.

The investigators plan to develop algorithms that achieve faster
running times or better approximations by exploiting the planarity of
the input networks. In addition, in order to address the use of
optimization in the discovery of some ground truth, the investigators
will develop algorithms not just for the traditional worst-case input
model but also for models in which there is an unusually good planted
solution; for a model of this kind, the investigators expect to find
algorithms that produce even more accurate answers.

The research will likely uncover new computational techniques whose
applicability goes beyond planar networks. In the recent past, once a
technique has been developed and understood in the context of planar
networks, it has been generalized to apply to broader families of
networks.

In addition, new algorithms and techniques resulting from this
research might enable people to quickly compute better solutions to
problems arising in diverse application areas. For example, research
in this area has already had an impact in the computer vision
community. Further research has the potential to be useful, for
example, in the design of networks, the planning of routes in road
maps, the processing of images.